NSF Workshop for High School Teachers of Mathematics and Science

The purpose of this workshop is to enhance the cooperation among various control groups and high school teachers of mathematics and science throughout the United States and the world, to give attention to control and systems ideas and technology, and to increase the general awareness of the importance of control and systems technology and its cross-disciplinary nature among high school teachers and students.

Control and Systems Science occurs in many different disciplines and its applications occur in a wide variety of technologies. It involves a variety of tasks, such as, modeling, identification, simulation, planning, decision making, and optimization.

Some application areas of control and systems include transportation, manufacturing, communications, processing industries, and financial markets. The basic control systems science influences and impacts a diverse range of study, such as, biology, physics, chemistry, economics, and medicine.